A Public Molecular Recognition Database

Abstract

DBI 9808318; Gilson, Michael; University of Maryland

Molecular recognition, the noncovalent binding of specific molecules to each other, is
fundamental to biology. Examples include antibody-antigen recognition and the binding
of hormones to their receptors. Data on what molecules bind each other and how tightly
they bind is currently published almost exclusively in journals. This sharply limits the
amount of information that may be published and makes even simple queries impossible.

It is proposed to develop the first public, web-accessible database with information on
molecular recognition. The initial release will be modest in scope, but will be carefully
planned and designed to support rapid future expansion. The database will:

Contain measured binding affinities for proteins, nucleic acids, carbohydrates and other
natural and synthetic molecules;

allow deposition of experimental details of the binding measurements;

include structural information from the Protein Data Bank and links to structures in the
Cambridge Structural Database;

allow for a range of queries including SQL, sequence, and chemical-substructure
searches;

provide analysis tools for correlating structure with thermodynamics.

be subject to continuing evaluation by users, depositors, and a scientific advisory board.

Workshops involving prospective users and depositors will guide the development of the
data dictionary and the user interface The implementation will be facilitated by extensive
previous work in biomolecular informatics by the proposers. Thus, the data dictionary will
be developed as an extension of the mmCIF dictionary an internationally accepted format
for biomolecular structure. A relational data management system will be used for most
queries. The Property Object Model developed by one of the proposers will also be used to
support property-oriented queries such as those involving 3-D substructure searches. The
database will be accessed primarily via the WWW; mirror sites on both coasts will be used
to shorten response times and to provide backup service. The project will undergo
continuing evaluation via several mechanisms, including a Scientific Advisory Board that
will meet publicly to review progress and provide guidance.

This cross-disciplinary project will impact molecular biology, structural biology,
bioinformatics, and chemistry. The database will advance knowledge of the functions of
biomolecules, of the relationships between molecular structure and binding, and of the
physical chemistry of molecular recognition. It will also lead to new and improved
methods of designing molecules that bind targeted receptors. Such molecules will be
useful as novel biological effecters and will also be used in a range of applications
including assays, sensors, and chemical separations.